Wireless connection to the Internet: The School Town of Munster

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years to connect three elementary schools to the Internet through a 2Mb full duplex spread spectrum radio transmission system.